RCMS: Research Careers for Minority Scholars

The Environmental Solutions Program and the Science and Technology Center working in concert with the Civil/Environmental and Electrical/Computer Engineering departments at UT Austin will involve approximately 175 undergraduate minority students (35/yr) in a variety of environmental problems and a broad selection of tasks including synthesis, growth, and analysis of electronic materials over a five year period. The Academic Year Program will involve minority students from the College of Engineering at UT- Austin. The Summer Program will invite students from schools which have a high predominance of minority groups enrolled, such as Prairie View A&M, Pan American, Texas A&I, UT San Antonio, UT El Paso, and other campuses that have NSBE, SHPE, or SWE Chapters. Students chosen for this Research Careers for Minority Scholars (RCMS) program will participate i state-of-the-art research under faculty supervision and sponsored by industry or government. These students will meet weekly with faculty supervisors and bi-weekly as a group to exchange information and ideas about the progress on their various projects during their semesters of participation in the program. The research work done by these engineering students will allow them to receive three hours of research credit for participation in their RCMS program. Successful conclusion of the student's activity will include the writing and presentation of a final technical report of the work that was performed.